Technology Tomorrow Scholarship Program

The Technology Tomorrow Scholarship Program is designed to attract more students to two- year technical programs in the computer science, computer technology and engineering technologies. The project focuses on low-income, first time students who are not necessarily college directed or oriented but who have the talent to succeed in technical programs based in computer science, computer technology or engineering technologies. The project provides the opportunity for financial assistance to students in the West Texas Region, an area marked by vast distances between metropolitan areas and a large percentage of economically disadvantaged students. The program combines scholarship assistance with student services, including a specialized mentoring program, designed to promote success in college, success in job placement, and success in the workplace.